Cognitive Busyness, Cognitive Recovery, and Social Inference

During social interaction, people must devote considerable attention to the execution and regulation of their own behavior, and thus are often "cognitively busy" while drawing inferences about others. Past research suggests that cognitive busyness makes people temporarily unable to use certain kinds of important information .. despite the fact that they have noticed, understood, and stored this information in memory. As such, cognitively busy perceivers are particularly likely to draw erroneous inferences about others (the so.called "undercorrection error"). The undercorrection error results when people fail to use information that they do, in fact, possess; as such, the error should be reversible. This research addresses four basic questions regarding the reversibility of the undercorrection error. First, precisely what cognitive mechanism enables the error to be reversed? Second, how can the prospect of future interaction with the person about whom one has made an erroneous inference sometimes activate and sometimes inhibit this mechanism? Third, are there factors that render the error truly irreversible? Finally, are there effects other than the undercorrection error that result from being cognitively busy and that are also irreversible? Social psychologists consider the undercorrection error to be the most fundamental and pervasive mistake that people make when trying to understand each other. Such errors often serve as the grounds for interpersonal and inter.group conflicts, and it is important for us to learn how they can be corrected or undone. This research will clarify the mechanisms by which the undercorrection error may be reversed, and will explicate the situational factors that facilitate or inhibit such reversals.